Non-Equilibrium Systems: Friction, Lubrication and Adhesion

0083286
Robbins
Friction, lubrication and adhesion are fundamental processes with many technological applications. Traditional engineering approaches to these phenomena start from macroscopic continuum equations that rely on phenomenological inputs. The goal of this research is to improve our understanding of how molecular level processes control macroscopic properties and how behavior changes as dimensions approach the atomic scale. The primary tool will be molecular dynamics simulations, coupled to continuum theory at large scales.
%%%
Friction, lubrication and adhesion are fundamental processes with many technological applications. Traditional engineering approaches to these phenomena start from macroscopic continuum equations that rely on phenomenological inputs. The goal of this research is to improve our understanding of how molecular level processes control macroscopic properties and how behavior changes as dimensions approach the atomic scale. The primary tool will be molecular dynamics simulations, coupled to continuum theory at large scales.
***